Research Initiation Award: Highly Optimizing Compilation for Constraint Logic Programming

9308631 Michaylov The Constraint Logic Programming (CLP) languages are a class declarative programming languages based on the paradigm of rule based constraint programming. This project concerns the development of practical techniques for highly-optimizing compilation of CLP languages. To obtain good performance, it is necessary for a compiler to perform optimizations based on global properties of programs, because of the high-level nature of these languages. This study will concentrate on compiling the language CLP(R), although many of the techniques will be applicable to other CLP languages. Program analysis for CLP languages has been studied extensively, and the investigator has developed an abstract machine for executing CLP(R) efficiently, given a suitable optimizing compiler. This project will address the questions of which information provided by analyzers is actually useful for obtaining efficient code for realistic programs, what compilation techniques are needed for obtaining the code given this information, and how such compilation can be made scalable and reliable. The study will build on the investigator's work on CLP implementation issues. It will lead to a greatly increased understanding of the use of global program analysis as the basis for a highly optimizing CLP(R) compiler, and demonstrate its feasibility for the first time through the implementation of such a compiler. It will provide a much needed tool that can easily be used by researchers in program analysis to evaluate their work empirically, and will help to identify outstanding research issues in high-performance compilation of CLP languages. ***